A Workstation Laboratory to Improve Undergraduate Instruction in Artificial Intelligence

This project improves the quality of instruction of upper level courses in computer science in artificial intelligence by providing students with a laboratory of powerful, interconnected workstations and a modern programming environment which integrates artificial intelligence (AI) techniques, graphics, windowing systems, and object-oriented programming. With this equipment, students majoring in computer science, computer engineering, and physics are able to develop advanced software projects, utilizing the state- of-the-art software tools of graphics, windowing facilities, LISP, Prolog, an expert system shell, and object-oriented programming tools. Also, students in senior research projects, independent study projects, and in the honors program are able to develop sophisticated AI software using this laboratory. These experiences with advanced software will provide better preparation for students who wish to go on to graduate school as well as those who pursue careers in industry. The award is being matched by an equal amount from the principal investigator's institution.